The Powers of Nature: A traveling exhibition

9626958 Claiborne The Franklin Institute will develop a 6000 sq. ft. traveling exhibit about "The Powers of Nature". Focusing on earthquakes, severe storms, and volcanoes, the exhibit will promote a greater understanding of the meteorological and geological forces that underlie these phenomena. Visitors will also learn about how scientists monitor and predict natural events, more about how these natural events affect our lives, and critical safety measures that people should take during these dangerous events. The exhibit will include a rich array of immersion experiences, hands-on interactive activities, historical photographs, modern data and imagery, artifacts, and personal stories. An Educator's Guide containing background information and classroom activities will be developed and circulated in a printed publication as well as electronically on the Franklin's WWW home page (Http:\\sln.fi.edu). The exhibit will open at the Franklin Institute in October, 1997 and will circulate among the seven other science museums that are part of the Science Museum Exhibit Collaborative. It is estimated that 2.5 million people will see the exhibit during its 42-month tour.